Small Business - ERC Collaborative Opportunity to develop an instrument for trace detection of O2 using a high-finesse prism optical cavity and the Faraday Effect

Intellectual Merit :
In this project a new fully optical CE-FRS detection scheme is proposed to mitigate needs
for any chemical treatments of the sample gas that is usually required with currently available
instrumentation for trace oxygen sensing. The project will leverage unique capabilities of
development and commercialization of cavity enhanced technologies by Tiger Optics and the
new sensing technology based on FRS developed and demonstrated by MIRTHE. Initially a proof-of-concept
prototype system will be investigated based on a conventional two mirror high-Finesse cavity
equipped with a custom FRS optics for signal extraction. Most importantly the proposed research
will also explore the possibility of implementing CE-FRS using the Tiger Optics proprietary
high-Finesse optical prism cavity technology. This unique technology would allow CE-FRS to
be implemented in combination with standard cw-CRDS in the same commercial instrument, permitting
sensitive broadband detection of paramagnetic and diamagnetic molecules simultaneously. The
proposed technology will eliminate routine maintenance issues, chemical conversion uncertainty
and other disadvantages typical for electrochemical systems or indirect sensing technologies.
The proposed direct laser-based detection provides significant advantage in industrial applications
where 24-7 continuous monitoring is required and in environmental applications where analyzers
are often situated in remote locations with basic infrastructure.
Broader Impacts :
Development of a CE-FRS method will open up possibilities for sensitive monitoring of many
other paramagnetic species. This method will be suitable for real-time monitoring of trace
concentrations of radicals involved in combustion and atmospheric chemistry, i.e. NO, NO2,
OH, HO2, and CH. In many cases, while the presence of these radicals is known, the reaction
rates and abundances are not well known due to the lack of in situ monitoring capabilities.
A direct laser-based method can provide a new tool for monitoring trace-radicals in a wide
range of applications such as environmental monitoring, industrial process control or combustion
diagnostics. Therefore scientific and engineering advancements in this field integrated with
a comprehensive educational program addressing specific career development goals at each academic
level from high school students to post-doctoral researchers, will provide an excellent training
for the new generation